Workshop On Supramolecular Chemistry in Connection With the Fourth International Chemistry Congress; Havana, Cuba

107764
Malin

This award will fund travel and related expenses for a group of US chemistry researchers to participate in a workshop on supra-molecular chemistry. The workshop will be part of the Fourth International Chemical Congress that will take place April 16-20, 2001 in Havana, Cuba. The Congress this year is co-sponsored by several agencies within Cuba and by the International Union for Pure and Applied Chemistry, and the International Union of Biochemistry and Molecular Biology.

The supra-molecular workshop, organized by Dr. John Malin and Dr. Luis Echegoyen for the American Chemical Society, will be coordinated with Professors Luis Montero and Robert Cao, of the University of Havana. The immediate objective is to improve communication among chemical scientists in the Americas, with the ultimate goal of strengthening ties and developing collaborations in the area of supra-molecular chemistry among chemists in the hemisphere. The workshop will feature internationally renowned scientists who will present cutting-edge results, ranging from very basic developments to more applied topics in the field.